Stochastic and Reliable Matching and Scheduling Algorithms for a Heterogeneous Computing Environment

In heterogeneous distributed computing, a network of dissimilar machines is used to
execute a given application in parallel. With the advent of advanced network technologies,
the scale at which heterogeneous computing can be practicaly applied is growing to a
global scale, thus making it possible to collect high performance computers across the
globe into a single computational resource. Multiple users will be able to simulataneously
use this computational resource to execute a variety of large, parallel applications.
However, there are a number of problems to solve before this type of computing becomes a
reality.
Therefore this project proposes to develop effective matching and scheduling methods to
allow multiple users to execute applications in a large, decentralized, failure-prone,
heterogeneous computing environment. Due to the dynamic and uncertain nature of this
environment, the algorithms that will be developed will use statistical techniques to
allocate resources fairly in a highly dynamic system. The algorithms will be evaluated by
simulations and also on a small testbed. There are three different aspects of this
proposed work:
1. Methods will be developed to statistically obtain an estimate of the response time of a
task on an arbitrary target machine. This will be accomplished by developing separate
techniques to estimate the execution time, machine loads, and network loads. A method for
estimating the execution time using data gathered from past executions of the task has
already been developed. This method will be refined and similar stochastic methods will be
developed for machine and network load estimation.
2. A dynamic matching and scheduling method for heterogeneous machines will be developed.
This method will allow each application to make scheduling decisions without direct
knowledge of the other applications executing in the environment. Each application will
have to compete for the computational resources of the network. The scheduling heuristics
will take into account the uncertainty in the stochastic estimates of the execution time
and machine and network loads.
3. Finally, reliable scheduling algorithms based on either heuristic cost functions or
evaluation of the reliability of applications will be developed. The heuristic cost
functions developed will define the impact of a scheduling decision on the reliability of
an application in time units. These algorithms will consider both the execution time and
failure probability of applications while making scheduling decisions, and thus, will be
capable of producing task assignments that improve both the performance and reliability of
applications. In addition, algorithms which can trade performance for reliability of
applications will be designed.